Primitive Antibodies

A grant has been awarded to John J. Marchalonis, Ph.D. for studies on
"Primitive Antibodies". This project addresses the molecular basis of
diversification of the recognition molecules that are essential for the
generation of specific immunity. The project focuses upon the immune system
of sharks because these are the most primitive vertebrates to share with
humans the combinatorial immune response. This is based uniquely upon the
recombination of gene segments to generate the variability in antigen
receptor molecules present in serum and on blood cells. Sharks, which arose
approximately 450 million years ago, like humans have immunoglobulins (also
termed antibodies), T-cell receptors (TCRs), major histocompatability
antigens (MHC), and recombination activating genes (RAGs) that are required
to allow rearrangement of the gene segments making up the antibodies and
T-cell receptors. The project will address both conserved and unique
features of the combinatorial system of carcharhine sharks to elucidate the
molecular underpinning of combinatorial immunity as it is expressed in all
vertebrates.

The project includes three major areas of focus: The first is the complete
characterization of the shark RAG locus with emphasis upon its evolutionary
emergence and functional similarities and differences to the molecular
homologs found in mammals and other higher vertebrates. The second major
area of concentration is the characterization of the genes specifying the
alpha/beta and gamma/delta T-cell receptors of carcharhine sharks including
their diversity and gene organization, and the construction of recombinant
single chain TCRs for functional and structural analyses. Because of the
pronounced differences in organization of shark and mammalian antibody gene
segments, it is crucial to determine the arrangement of shark TCR genes.
The third aim tests the generality of clonal selection theory by
determining whether sharks which have a cassette organization of antibody
gene as opposed to translocons of higher vertebrates show clonal
restriction in their antibody forming lymphocytes. These studies are
directed towards applying molecular and protein chemical technologies to
obtain precise answers to fundamental problems of the system as it obtains
in all vertebrates, with implications for defense against invading
pathogens, cancers and immunological dysfunction in autoimmunity.